A Model Project to Improve High School Mathematics Achievement in Urban High School Districts

The underachievement of Black and Hispanic students in precollege mathematics is seriously undermining the potential talent pool for the future challenges in science and technology. This project is a comprehensive model effort to demonstrate and further develop a system of mathematics instruction that gives all students the opportunity to enroll in and achieve in the precollege mathematics requisite for college study in science and engineering. The model project is based on the action research and development of the Comprehensive Math & Science Program (CMSP), a collaborative project effort which has created curriculum and instructional models that have significantly increased the pool of students at participant schools in New York City and Fulton County, Georgia who enroll and achieve in precollge mathematics. The model project will be demonstrated over a four-year period in six districts: New York City, Boston, Washington, D.C., Seattle, Los Angeles and Fulton County in Georgia. Over 7,500 students from 30 high schools in the six school districts will participate in the model project. All of the students will be selected at random and their academic performance and persistence will be carefully monitored with standardized tests; and comparisons will be made at city, state and national levels. By virtue of substantially increased learning times, structured programs and a greater reliance on students for their own learning, significant gains in mathematics achievement are expected to occur. The CMSP's long collaboration with a coalition of university-based precollege programs operating in urban school districts will facilitate project implementation. The effectiveness of the CMSP has been validated through the extensive data collection and analysis done since its inception. CMSP students have consistently out performed non-CMSP students, and have been more able to perform at grade level though high school. During the 1983-84 academic year, CMSP looked at the number of students enrolled in the CMSP program and at the non- CMSP students in six participating schools. These students were again surveyed during the 1986-67 year when they would be seniors. Of the CMSP students, 26% were still in school at grade level, while only 18% of the non-CMSP students remained and were at grade level. When students in tow of the schools took the New State Algebra Regents Examination, the percentages for CMSP students passing the exam were 99% and 90%; the non-CMSP students percentages were 80% and 66%. Clearly, this project has developed an intervention strategy that is effective.